MRI: Acquisition of a Pulsed Laser/Detection System for Time-Resolved Studies of Molecular Complexes

With this award from the Major Research Instrumentation (MRI) Program, Professor Maria Buthelezi from Wheaton College and colleagues John Collins and Xuesheng Chen will acquire a pulsed laser/detection system with a tunable dye laser system, a detection system, and a cryogenic refrigerator system. The award will enhance research training and education at all levels, especially in the areas of (a) studies of host/guest interactions of photochromic molecules, and (b) luminescence properties of solid state materials.

A tunable laser is a laser whose wavelength of operation can be altered in a controlled manner. The dye laser uses an organic dye as the lasing medium giving a system that can be used over a broad range of wavelengths. Some of the dyes can be large molecules that emit light via fluorescence. The tunable dye laser/detection system will enable excited-state lifetime and time-resolved fluorescence measurements that are important to the investigation of several processes that occur in molecular complexes: radiative decay that leads to conformational states, non-linear energy transfer processes, and fluorescence quenching mechanisms. This instrumentation will also foster the interdisciplinary curricular and research interactions between chemistry, physics and biology at Wheaton College.